Three Dimensional Structure of the Mantle

This research is to advance the knowledge of three dimensional structure of the Earth's mantle. The improvement of P- and S- wave velocity models will be accomplished through expansion of the following observations: augmentation of the waveform data bases using data from many new broad-band digital stations deployed after 1984, expansion of absolute and differential travel-time data sets measured from digital seismograms, and development of a new "summary travel time" data base from ISC Bulletins containing seismic station-source region anomalies. Acquisition of this data base will be followed by a joint inversion of waveforms and traveltimes; in the past these data were treated separately. In addition to this primary objective, the acquired data will allow the examination for large scale anisotropy and lateral variations in Q.